Symposium on Bridge Strengthening and Rehabilitation

This project will provide a forum to disseminate information on the condition assessment, strengthening and rehabilitation of bridge structures of all types. The symposium will result in a proceedings which will be the first up-to-date state-of-the-art. The report will be of great benefit to professional bridge engineers and researchers.